Computer Enabled Teaching and Learning in a Student-Centered Space

Mathematical Sciences (21)

Over the past several years, the proliferation of accessible mathematics technology has led to alterations in mathematics pedagogy. The college has responded to these changes by incorporating the use of technology throughout the mathematics curriculum from the use of graphing calculators in calculus to computer labs in more advanced classes. The goal of such reform has been to provide opportunities for students to work on realistic and computationally complex problems, develop strong visualization skills, and engage in collaborative and investigative learning. The purpose of this project is to extend and fully integrate the use of technology in mathematics classes by creating a student-centered computer classroom and implementing appropriate curricular changes in the effected courses. Initially, three courses are being taught daily in the computer classroom: multivariable calculus, linear algebra, and differential equations. These courses already make use of scheduled visits to a computer laboratory, but the new classroom is providing daily use of essential technologies and eliminating the artificial separation between the high-tech and non-tech activities of the class. In order to ensure a successful transition to the new space, curricular changes are being implemented that reflect the recommendations of The Linear Algebra Curriculum Study Group and the Boston University Differential Equations Project.